The Chare Kernal Parallel Programming System

All common approaches to parallelizing compilers, high-level languages such as functional languages, and explicitly parallel languages - require a common base of support. This work will encapsulate this support in a language that abstracts over resource management decisions and machine details, and develops a runtime support system on different classes of MIMD machines for implementing this language. The language can then be used by implementors of other high level approaches to parallel programming as a universal and efficient back-end. It can also be used for efficient application programming. The language and the runtime system will support dynamic load balancing, and small to medium computational grainsize, to meet the above objectives. For expressiveness as well as efficiency, the language will support a rich set of primitives for expressing specific forms of information sharing. The runtime support system for the language has been implemented already on distributed memory machines such as iPSC/2, and shared memory machines such as Sequent Symmetry, and a preliminary compiler has been written. Performance results on these machines have been obtained on simple benchmarks and are very encouraging: they show that we can obtain excellent speedups with many processors, while costing only a few percent overhead over the best sequential C programs, on one processor.